U.S-China Cooperative Research: The Use of Integrated Models To Manage Marginal Ecosystems in Gansu, China

This is a two.year collaborative research project between Dr. Hsin.I Wu, Texas A & M University and Professor Ren Jizhou, Gansu Grassland Ecological Research Institute. This proposal plans to develop and implement mechanistic models using integrated modeling techniques to manage economic development in a marginally.productive region of Gansu, China. This is an important, new approach in managing a fragile ecosystem. Much of the model development has been done using grant support from the Division of Biotic Systems and Resources. The study uses the data collected on Gansu grassland ecosystems by the Chinese collaborating institute to validate the biosystem models. The success of this study can provide a new way to integrate a large amount of data on managing a marginal ecological environment.